Minority Access to Science and Math education

HRD 0528179
The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.

Dr. Ashok Puri is University Research Professor in the department of Physics at the University of New Orleans. Puri works to support the retention and matriculation of minority students at UNO as well as K-12 outreach activities and the recruitment of students through participation in science fairs and through classroom visits and science demonstrations in public schools.